Evaluating the Efficacy of Low PPM Process Control Schemes in a High Volume Production Environment

This research focus is on the investigation of a variety of process control schemes for regulating and improving highly reliable systems such as those found in the high volume electronics assembly environment. When the entire manufacturing process is considered, there are a large number of operations that must be performed properly in order to manufacture high quality electronics modules. The Center for Advanced Vehicle Electronics (CAVE) at Auburn University recently undertook an extensive effort to evaluate the entire solder paste process for the electronics manufacturing environment, and this effort complements that research in the area of electronics placement and visual inspection of the component devices.